SHF: Medium: Compiler and Chip Multiprocessor Co-Design for Scalable Efficient Data Access and Communication

Multi-core computing, where several processor cores are combined together into a single chip, has become
the standard in computer processor design. In effect, each chip has become a small parallel computer
and leveraging the processing power of parallel computing efficiently is a difficult challenge. Parallel
computing attempts to accelerate computational tasks by separating the work into segments that can be
calculated independently using different processors. Unfortunately, these processors need to communicate
with each other to complete the computational tasks correctly. This communication and the resulting
access to data are major limiting factors to how much a computational task can be accelerated with
multiple processors.
This research proposes a cooperatively designed system that considers the method for storing and accessing
data (memory), the method for communication between processors (network), the software that
controls how programs are executed (operating system), and the design of the program executables themselves
(compilation) to maximize the program execution speed. The key observation is that while each
component of the system can be improved independently, each component contains information that can
help the other components to realize even greater benefits. Just as a transportation infrastructure requires
information about traffic patterns; for example, if traffic patterns were ignored and if highways connect
rural areas and only side streets connect major cities, traffic would reach a standstill while highways are
inefficiently used. Likewise, the communication network cannot be efficiently designed without information
from programs on communication patterns.
The outcomes from this project will be the development of “cross-layer” design concepts for multi-core
computer architectures that will result in performance improvements and effective use of more processor
cores within a single chip.